Conference: 2026 Biomineralization GRC and GRS

Non-technical Abstract
The 2026 Gordon Research Conference (GRC) on Biomineralization (‘Bio-crystallization and Bio-assembly Across Scales’) and the associated Gordon Research Seminar (GRS: ‘Fundamentals and Applications of Biomineralization Across Diverse Model Systems’) will bring together early career and established scientists from around the world with complementary backgrounds, all interested in understanding how biology produces mineralized tissues (e.g., seashells, corals, bones, teeth), which requires crossing the boundaries between the disciplines of biology, physics, chemistry, materials science, and bioengineering. Together the GRC and GRS will create a supportive and open community that fosters fruitful interactions among graduate students, postdoctoral fellows, and early career investigators with established scientists from universities, national labs, and industry. The organizing team includes graduate students, postdocs, and faculty leaders with a broad range and many years of expertise in the chemistry and biology of biomineralized tissues and bio-inspired materials science and engineering.

Technical Abstract
With support from the Biomaterials program, the organizers of the 2026 Gordon Research Seminar and Conference on Biomineralization will provide scholarships for students and postdoctoral researchers to participate in the conference and join the "Biomineralization" community. We will continue the tradition of a highly interdisciplinary program. Sessions will highlight topics including: classical and emerging model biomineralizing organisms, bone and tooth biology, collagen, biomechanics, pathological mineralization, nucleation and growth models, tissue engineered models of mineralizing systems, and hierarchical assemblies in biology and bio-inspired materials. This year, a particular focus will be on looking beyond biominerals to topics related to biocrystallization and even bio-assembly, as well as exploring examples of “applied biomineralization” in architecture and construction. As will be addressed in all our sessions, there is great potential for application of the new insights gained from understanding the formation mechanisms, structures, and properties of biominerals. Examples include functional materials with advanced mechanical (e.g., structural materials), optical (e.g., structural colors), and catalytic (e.g., immobilized enzymes) properties. The biominerals themselves and the underlying biomacromolecular templates are also relevant to developing syntheses of non-biological minerals that combine unique structures (inherited from the biological process) with technologically relevant materials properties.